Parallel Processing on a Cube Connected Machine

Researchers at U of Texas-Dallas will purchase a 32-node hypercube computer for development of new tools for parallel computation. Both theoretical and experimental work is planned. Central topics include: (1) Design, implementation, and analysis of parallel algorithms in various fields. (2) Development of efficient communication protocols for communicating with independent processors and algorithms for optimum assignment of tasks to processors. (3) Study of new parsing techniques and languages for parallel processing. This is an important research area, in which support is recommended.